Success in Science, Mathematics, Engineering and Technology Programs

Virginia State University is submitting this planning proposal to the National
Science Foundation Historically Black Colleges and University Undergraduate
Program (HBCU-UP) in Mathematics, Engineering, Computer Science, and the
Physical Sciences. The Goal of this planning proposal is to conduct an assessment
at VSU on the SMET offerings and develop a plan which will be an institutional
stepping stone toward a National Science Foundation SMET-UP five year grant
proposal with t he long term intention to increase the number of well-qualified
minority students graduating in engineering, science and mathematics and to
provide these students with sufficient preparation, guidance, and encouragement
to attend graduate school.

Key personnel for the project will be the Principal Investigator (PI), Co-PI, Activity
Coordinator, the director of Institutional Planning and Assessment, the director
of Freshmen, Retention and General Education Programs and all SMET department
chairpersons.